Highlands High School Engineering and Science Core Program

The project proposed by the Engineering Experiment Station of Texas A&M University has as its major goal development of a clear and supporting way for minorities, particularly minority women, in the San Antonio middle schools to enter the Highlands High School's Science and Engineering Core Program and thence into collegiate science and engineering programs. Students entering grades 7 through 12 will be involved in projects that infuse engineering design and problem solving into the curriculum. To that end, teachers and parents will work with major Texas industry scientists and engineers to assist in curricular matters and also promote the long-term commitment to pursue advanced degrees in science and engineering. The partnership will bear approximately 64% of the anticipated project costs.